Development of a Finite-Element and Finite-Difference Based Discrete Numerical Mass Transfer Model for Instruction and Research

0088912 LeBoeuf The objective of this project is to develop a user-friendly, fundamental finite-element and finite-difference based discrete numerical model to more fully evaluate a number of proposed mass-transfer limitation processes. This model will be used by students, faculty and researchers to investigate and understand more fully the effects of mass transfer limitations on the distribution, transport, reaction and transformation of contaminants within natural or engineered environments. This project addresses a single particle in a two-phase system comprised of water and the particle; future work would address gas-phase and, eventually, three-phase (gas-solid-liquid) behavior. The system developed will be made available to interested parties via an interactive web-based environment using Prometheus, further enabling prompt, two-way communication between the user and the principal investigators. ***